Formal group laws in homotopy theory and K-theory

Abstract

Award: DMS-0805833
Principal Investigator: Tyler D. Lawson

The goal of this project is to relate the theory of formal group
laws to phenomena in stable homotopy theory and K-theory. In
stable homotopy theory, the objective is to begin making
fundamental computations in the theory of topological automorphic
forms developed in joint work with Behrens. This will first
proceed by examining and computing the homotopy of spectra
associated to certain moduli of abelian surfaces such as Shimura
curves, and then by working towards higher chromatic filtrations.
In algebraic K-theory, the objective is to make systematic use of
the relationship between formal group laws and complex cobordism
to systematize computations in algebraic K-theory and relate them
to the chromatic filtration, with the hope of gaining
understanding of the "chromatic redshift" phenomenon.

The subject of homotopy theory arose as a method to answer
concrete questions in geometry by way of algebra. In the
process, a strange connection was discovered with formal group
laws, which themselves are intimately related to quite different
subjects such as number theory and elliptic curves. In
particular, there is a surprising connection between elliptic
curves and mathematical physics. This research focuses on
applying very recent developments in homotopy theory to study
connections such as these, with the hope that our understanding
of number theory and our understanding of homotopy theory can
benefit each other.